Cuticle Elasticity and Viscoelastic Properties of Thistle Staminal Filaments

Our proposal is concerned with the mechanical properties of the staminal filaments of thistles, and the role of stimulus transduction and transmission in thigonastic movements. Earlier studies have shown that these filaments are highly elastic compared to other plant parts but specific data are still lacking. The unique combination of mechanical properties of cuticle and cells as a means of biological function positions our research activities in a multi-disciplinary area. The multi-disciplinary approach is evident in that not only biologists (KH Hasenstein, T. Pesacreta, V. Sullivan) but also a materials scientist (e. MArtin) are involved in the project. Because both living cells and biopolymers of the cuticle and other portions of the cell wall are involved in the function of the staminal filaments, our research will interface three divisions: materials research, cellular biosciences and molecular biosciences and molecular biosciences. Since we propose to share existing laboratory facilities rather than purchasing new equipment, and additional criterium of the program description is met.